Earth Sciences Postdoctoral Research Fellowship Award

The Fellow plans to develop and evaluate a series of mathematical models of global biogeochemical cycles with particular attention to the carbon cycle. These models will help clarify an understanding of global climate change and, in particular, elucidate the role and function of the carbonate- silicate cycle in effecting long-term climate change. The Fellow has chosen the Pennsylvania State University as his tenure institution.